Collaborative Research: The Role of Mafic Crust in Orogenic Magmatism - New Perspectives from Re-Os Isotopes

9980512
Johnson
Seventy-five to eighty percent of the new crust that is generated at the
world's orogenic arcs in the Cenozoic can be considered to belong to
"juvenile" island or continental arcs, and such settings likely represent
the major environments where new material is added to the crustal inventory
of the Earth. However, intracrustal recycling through re-melting of
juvenile arc basement is virtually undetectable in such settings because
there is virtually no isotopic contrast using traditional isotopic tracers
such as O, Sr, Nd, and Pb isotopes. Assessment of the role of intracrustal
recycling is critical for calculation of net crustal growth rates. This
work will focus on the Re-Os isotope system, which offers an exceptional
means to evaluate intracrustal processing in juvenile arcs. The motivation
for the proposed research lies in the recognition that basaltic magmas
develop extreme fractionations in Re/Os ratios, which will produce
radiogenic 187Os/188Os ratios that far exceed those of the mantle, over
periods of several to 10's of m.y. The initial target of the proposed
research is the Cascade Arc, NW USA, which is an ideal place to test our
this hypothesis because the Quaternary centers are constructed on
voluminous Miocene to Pliocene mafic sequences, and interpretation of the
Re-Os isotope data will not be confused by a) the presence of old
(pre-Cenozoic) sources of Os, b) significant subducted sediment input,
and c) subduction of old oceanic crust.